SBIR Phase II: Cloud-Enabled Analysis Of Facial Affect

This Small Business Innovation Research (SBIR) Phase II project will commercialize the
world’s first cloud-based emotion measurement platform. Today, the majority of market
research is expensive and slow, relying either on subjective self-reports or costly,
obtrusive lab-based technologies. The proposed emotion measurement platform aims to
democratize market research by translating nonverbal facial expressions into intuitive
emotional insights. It also drives down research costs and improves market reach
through the use of widely available webcams as the means to record faces. This
platform enables businesses of any size to capture consumer’s emotional reactions as
they engage with their brands, particularly in the areas of advertising, product design
and packaging. For example, brand managers, marketers and agencies can optimize ad
effectiveness by evaluating viewers' tacit, moment-by-moment emotional response, in
real-time over the web, and through the platform’s emotion norms database. The
technical objectives of this project focus on implementing automated facial analysis as a
scalable cloud-based software-as-a-service platform, building the emotion norms
database, and deploying the platform with leading market research partners.

The broader impact/commercial potential of this project is to disrupt longstanding
methods in market research by objectively measuring people’s emotional experiences
a) unobtrusively b) in real-time, c) at scale, and d) cost-effectively. While this
differentiated emotion measurement technology can be leveraged in several target
markets, the company’s initial focus is on measuring advertising effectiveness and
media research to deliver actionable insights to leading media and market research
companies. In addition, the proposed cloud-based emotion measurement platform has
the potential to significantly accelerate research in behavioral sciences by enabling the
crowd sourcing of huge corpuses of naturalistic and spontaneous responses to a wide
range of interactions and experiences from online learning to social gaming. It also
allows entirely new research questions to be asked, and tackled with ecologically valid
data, such as whether individuals on the autism spectrum respond differently to content.
Thus, in line with the origins of this technology, our product accelerates psychological
and clinical research on social-emotional intelligence. The long-term vision for this
software as a service platform is to “emotion-enable” the Internet, giving consumers and
organizations the ability to add emotion context to all online interactions.